Purchase of 600 MHz High Resolution NMR

This award from the Chemistry Research Instrumentation Facilities Program will help the Department of Chemistry at Stanford University acquire a 500 MHz NMR spectrometer and solid state accessories to be used to upgrade the existing 400 MHz NMR spectrometer which will be used in research. The research activities to be supported include: (1) studies on the molecular basis of carcinogenesis, solution structures of peptide receptors, the synthesis and mode of action of DNA cleaving agents, the synthesis of taxol analogues and studies on their mode of action, mechanistic and synthetic organometallic chemistry, and mechanistic and synthetic photochemistry, (2) stereochemistry and mechanism of organometallic reactions in polymer synthesis and catalysis, (3) new approaches for synthetic efficiency, (4) mechanistic enzymology of oxidosqualene cyclization, (5) Coenzyme A Analogs as Probes of Enzymatic Reaction Mechanisms, and (6) Theoretical and Computational X-ray Absorption Spectroscopy. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers and catalysis, and in biology.